Collaborative Research: CT-T: Towards Behavior-Based Malware Detection

Sanjit Seshia
University of California, Berkeley
Collaborative Research: CT T Towards Behavior-Based Malware Detection
0627734
Panel P060975

Abstract

Malware is code with malicious intent that can adversely affect the
host on which it executes or the network over which they are
transmitted. A malware detector classifies a program as malware or
benign. Malware writers continuously test the limitations of malware
detectors in an attempt to discover techniques to evade
detection. This leads to an arms race, where malware writers find new
ways to create malware that are undetected by commercial malware
detectors, and where researchers working on malware detection respond
by devising new detection techniques. Attackers create new malware
using two main approaches: program obfuscation and evolution. There is
strong evidence that malware writers are using obfuscation and
evolution because the number of new malware families is growing at a
much slower rate than the number of malware instances. For example,
according to Symantec threat reports, in the first half of 2005 there
were 10,866 new virus and worm variants but only 170 new families of
malware. This data also indicates that signature-based techniques for
malware detection will not be able to cope with the increase in the
number of malware instances. Recent results by one of the PIs also
suggests that current commercial malware detectors are not resilient
to obfuscation and evolution techniques used by malware writers. All
this evidence clearly suggests that we need a new approach to malware
detection.

We propose to explore behavior-based malware detection: our algorithm
focuses on detecting malicious behavior (such as mass-mailing behavior
used by certain worms) rather than searching for syntactic
patterns. We specify malicious behavior in a formal language and then
perform static analysis on the code to determine whether it contains
the specified behavior. Prior work by the investigators demonstrated
that this behavior-based malware detector can detect families of
malware using a single specification. However, there are challenges
that need to be addressed in the context of behavior-based malware
detection. We propose tasks to address these challenges. Solutions to
the proposed tasks will lead to malware detection techniques that will
resist evasion techniques used by malware writers better than existing
malware detectors. Behavior-based malware detectors can also detect
new malware that are variants of old malware..